Oceanographic Instrumentation

0096544
Weingartner
This award to University of Alaska Fairbanks provides instrumentation to update and expand the oceanographic research capabilities of the research vessel Alpha Helix, a ship operated by the University's Institute of Marine Science as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. Specific instrumentation supported here includes two fluorometers plus interfacing to attach to an existing MOCNESS net system, ten water sampling bottles, and an upgrade of an existing optical plankton counter to a laser version of same. These improvements will be of substantial advantage to marine scientists using the ship in their research during 2001 and future years.
***